Engagement Letter for Audit of NSF Contract No. OCE 0432224 IODP Management International, Inc. (IODP), Washington, DC

Engagement Letter for Audit of NSF Contract No. OCE 0432224 IODP Management International, Inc. (IODP), Washington, DC